The Effectiveness of Software Testing Techniques

Many formal techniques for testing software have been proposed, but relatively little evidence has been gathered to indicate how effective these techniques are. The goals of this research project are 1) to compare the fault-detecting ability of various previously developed testing techniques, including control flow based, data flow based, and mutation testing techniques, and 2) to evaluate the effectiveness of partial symbolic evaluation of path expressions (PSE), a heuristic technique that addresses certain semantic analysis issues arising in testing. Fault-detecting ability of various test data adequacy criteria will be compared experimentally by generating large numbers of test sets for each of several subject programs, and measuring the proportion of adequate test sets (according to the various criteria) that expose faults. Fault-detecting ability will also be examined analytically by investigating conditions under which one criterion is guaranteed to be better than another according to certain probabilistic measures. Effectiveness of PSE will be investigated by measuring the proportion of cases in which the heuristic succeeds.